Space-Time Methods in Wireless Communication

The explosive growth in demand for high-speed wireless data services
has underscored the importance of bandwidth-efficient coding and
modulation techniques for multipath radio channels. Recent
information-theoretic results have shown that deploying multiple
antennas at both the transmitter and receiver can dramatically
increase the capacity of wireless channels, without sacrificing
power efficiency to the extent required by single-antenna systems.
To achieve these gains in practice requires new physical-layer
signal processing techniques (coding, modulation, decoding,
equalization, and array processing) that more fully exploit
the space-time structure of the multi-input/multi-output radio channel.

The goal of this project is to develop new tools for the
design and analysis of space-time coded-modulation on multipath
radio channels. Two issues are addressed. The first deals with
methods to more accurately estimate capacity and code performance
on channels with discrete multipath components. The second is
concerned with new parallel encoding methods for space-time
coded-modulation, which offer the performance gains of existing
codes at reduced complexity. The ultimate objective of this
work is to increase spectral efficiency and reduce power
requirements in wireless communication systems.